Conference: NSF-NIH Joint Workshop on Foundational AI in Biology

Methods and new techniques in artificial intelligence (AI) are rapidly being
developed, extended, and applied to challenging problems in biology. At the
same time, as new experimental methods, new data collection efforts, and
greater understanding are developed in biology, the class and scope of problems
that are amendable to AI approaches is growing. Extreme interest and rapid
progress in AI has also made the AI research landscape diverse and complex,
with a number of related, competing, and overlapping technologies and
approaches being advanced. This rich ecosystem is a boon to research and
innovation, but it also makes identifying threads and pressing problems more
challenging. Thus, there is a need to survey the current frontier of the
interface between AI methodology and biology and to chart future directions and
challenges. We propose a 2-day, online workshop to address that need. This
workshop will host invited talks by researchers working on foundational AI
methods in biology. New directions and connections between emerging AI
methodologies and problems in biology and health will be identified,
synthesized, highlighted, and formalized. The workshop will catalyze discussion
and help set the agenda for future research in this area, helping to launch new
directions and solidify promising ones.

The workshop will consist of approximately 13 talks and 4 discussion sessions
over two days. Speakers will be selected based on their prior work and
experience with developing new foundational AI methodology that answers
biological questions. Speakers will be asked to focus on one or more of the
following foundational AI themes as related to biology and human health: (1)
Fairness and Social Effects of AI; (2) Federated Learning; (3) Generative Deep
Learning Models; (4) Scalability of AI; (5) Privacy and Security in AI; (6)
Method Optimization and Automated Algorithm Design; (7) Explainable AI and
Causality; (8) Active Learning and Automated Science; (9) Transfer Learning;
and (10) Incorporation of Prior Knowledge in AI. Though the workshop cannot
hope to deeply cover all these foundational aspects, we aim to cover as many as
possible. Speakers will connect these foundational computational techniques to
problems in biology in areas such as genomics, structural biology, drug
development, systems biology, biomedical imaging, neuroscience, and disease
forecasting. With permission of the speaker, the talks will be recorded and
distributed over the internet, and participants will be invited to contribute
to a publication that surveys the identified themes, directions, and
challenges.